XSEDE and OSG 2012 Engagement Program for Students and Campus Champions

This project will engage and inspire the next generation of computational scientists
through a series of training and engagement activities, including: a four-day Open
Science Grid User School for undergraduate and graduate students; participation by
students in the XSEDE12 conference; and supporting attendance by XSEDE Campus
Champions from minority serving institutions (MSIs) and smaller colleges and
universities at the XSEDE12 conference. These activities build on prior successes with
the TeraGrid student program and OSG Summer School and expand the breadth of the
impact that XSEDE and OSG will have with the participating students.